Science Kick

Reach ENG-9414373 This is partial support to link the National Science Foundation to an experiment in developing technical/science literacy in future engineers and scientists using the special occasion of the World (Soccer) Cup in the US, linking it to the soccer ball-like Carbon-60 molecule which is named "Buckyball" for its physical resemblance to the engineering structures of Buckminster Fuller.